Infrared Spectroscopic Studies of the Photosynthetic Oxygen-Evolving Complex

9418164 Barry The technique of infrared spectroscopy will be used to investigate the relationship between structure and function in the photosynthetic oxygen-evolving complex, photosystem II. These experiments will focus on the manganese-containing catalytic site and on the 33 kDa manganese-stabilizing extrinsic protein. The oxidation of water is a four electron event. The manganese- containing catalytic site of the photosystem II reaction center accumulates these four oxidizing equivalents and cycles through a series of five "S states." Vibrational spectroscopy will be used to obtain information concerning the structural changes that occur in the manganese cluster and in the reaction center upon photooxidation. Infrared spectroscopy will also be employed in order to investigate the structure and functional role of the 33 kDa protein. This proposal has three objectives: A) to use difference infrared spectroscopy to measure and to identify the structural changes that occur upon oxidation of the photosystem II manganese cluster; B) to test the hypothesis that secondary structure changes occur in the 33 kDa protein when this extrinsic subunits binds to the photosystem II reaction center; C) to use difference infrared spectroscopy to determine if removal of the 33 kDa protein influences the structural changes that accompany oxidation of the manganese cluster. %%% Photosynthesis in plants involves the conversion of light energy into chemical energy. This process is carried out be the multi- step transfer of electrons in membrane associated proteins. Through this transfer of electrons, a relatively stable separation of charge is built up across the membrane. This charge separation is the energy storage event and is driven by the energy of light. The ultimate donor of electrons is water; the process of removal of electrons from water results in the liberation of oxygen. This oxygen production is critical for the maintenance of human life on earth. This propo sal will fund studies of the membrane associated protein that is responsible for the production of oxygen. Oxygen producing chemistry occurs at a cluster of four manganese atoms. Through the use of vibrational spectroscopy, we will obtain new information concerning the structure and binding site of the manganese cluster, as well as concerning the chemistry that occurs at this metal cluster. Vibrational spectroscopy is the ideal technique to use to investigate these processes, since it is exquisitely sensitive to small structural alterations. ***